Planning Grant to Establish the Center for Engineering Learning

PROPOSAL NO.: 0230659
PRINCIPAL INVESTIGATOR: Evans, Edward
INSTITUTION NAME: University of Akron
TITLE: Planning Grant to Establish the Center for Engineering Learning

Abstract

This planning grant presents a novel strategy for engaging teams comprised of faculty
and students from engineering, education, and the sciences in structured collaborative learning of
engineering and engineering pedagogy. Through collaboration between faculties of engineering and
education, team design projects that involve pre-service elementary education students and engineers at
the freshman through senior levels will be developed. Using planning grant funds, a working group will
be formed to develop and pilot-test the multi-disciplinary team design project.. In the long run, the CEL will participate in developing 1) high quality teachers prepared to include engineering in the K-12 curriculum, 2)
engineering faculty applying pedagogy, assessment and learning theory to engineering curriculum, and 3)
a body of scholarship on how students learn engineering at every developmental level.

Our approach is that multi-disciplinary team design projects, when effectively mentored
by engineering and education faculty and practicing engineers, will increase students' engineering
competency and improve pedagogy in undergraduate engineering. The development of the
multidisciplinary team design project will be driven by the input of in-service teachers and faculty from
the College of Education. The engineering content of the design project will come from the expertise and
resources of academic and industrial engineers. The administrators and industrial advisor on the working
group will address issues regarding institutional policy and industrial involvement, respectively.

The starting point of our development will be the Vertically Integrated Team Design Project
conducted in the Department of Chemical Engineering. Engineering design will be learned by solving an
authentic engineering problem with a team of education students and engineers at all levels (students
(freshman-senior), faculty, and industrial). Each team will be mentored by faculty members from
education and engineering, a practicing engineer, and a teacher. In this planning grant activity, four teams
will include pre-service elementary education teachers as active engineering members. Formative
assessment of the project will be discussed and disseminated by all stakeholders within the working
group. t our efforts will proceed at a rapid pace.